How Artifacts Have Politics: A Study of the Role of Design in the Shaping of Political Society

The basic assumption upon which Dr. Winner bases this research is that, in an age characterized by rapid, pervasive technological change, the traditional concerns of political thought must expand to included choices that may seem to be merely technical ones. He argues that the building of new systems in production, transportation, information, communications, and the like involves not only matters of efficiency, productivity, reliability and the like, but also questions about freedom membership, authority, community, and the distribution of social power. One point at which these issues might be fruitfully addressed is at the design stage of technological development. Under this grant, Dr. Winner is examining three aspects of design in technological development. First, he is examining a variety of historical examples to show how the design of technological systems can have political consequences. Second, he is comparing three traditions of design- -political theory, architecture, and industrial engineering--to see what they have to say about the relationship of form and content in the structures they ponder. Third, he is attempting to develop a political theory of design, one that can offer advice on value choices to be made about the shape of evolving technological systems. He will apply this theory to a number of currently evolving sociotechnical fields, including the designs of digital bank card systems and their implications for issues of privacy and individual freedom.